MCA: Inclusive Workplaces for Individuals with Developmental Disabilities in Informal STEM Education (IWISE)

This project aims to serve the national interest by exploring community-based participatory research and relevant theories from organizational change and disability studies to universally design informal STEM education workplaces such as zoos and aquariums for all employees, interns and volunteers. This project will implement a mentorship and professional learning plan specifically focused on three key areas: 1) developing deeper understanding of theories and methods related to universal design, 2) applying community-based participatory research with worker communities in the informal education workplace, and 3) exploring theories of organizational change. The project will advance knowledge about universal design, hiring and employment practices in informal STEM education settings, specifically in zoos and aquariums, that support a workforce for all employees and deepen understanding of organizational characteristics that advance or limit the implementation of these practices.

This project explores the overarching research question: What is the experience of individuals working as employees, interns, and volunteers and their workplace supervisors, leaders and other connected individuals at zoos/aquariums as the organizations change to implement employment practices that work for all employees? The study will be conducted using community-based participatory methods to explore the research question. The study will apply qualitative case study methods, specifically using a sociological descriptive and multiple case study approach, with workplace-connected zoo and aquarium employees, interns, and volunteers as case study participants. Data collection activities will include listening sessions, interviews, observations, and photo journaling with employees, interns, and volunteers at participating zoo/aquarium sites. The data will be coded and analyzed using qualitative methods, including thematic and cross-case analysis, to describe the experience of workplace-connected participants at case study sites and how case study sites implement workplace practices that work for all employees, interns and volunteers. The research findings will be informative for zoos, aquariums, and potentially other informal science education settings that share major characteristics with zoos/aquariums as they engage in work to create universally designed workplaces, with the ultimate goal of creating zoo/aquarium workplaces that support all workers.